Travel Assistance Awards for Symposium Undergraduate Research in Polymer Science at 2008 Spring National ACS Meeting in New Orleans, LA, April 6-10, 2008

Intellectual merit.
By providing the opportunity for participating undergraduate students to display the
results of their creative academic activities at the national level, the Symposium, which is
specifically dedicated to recognize and celebrate the students' exceptional work, is one of the
most effective means to motivate these students and intellectually stimulate their further interest
in graduate education. The symposium will give participating students a chance to discuss their
research projects and exchange ideas with other students, graduate researchers, faculty and
professional scientists. In addition students will practice presentation skills and gain invaluable
experience presenting research at a premiere, national level, professional scientific conference.

Broader Impact.
The symposium will serve to provide recognition to outstanding undergraduate students
in polymer science and engineering, to foster networking and exposure, to introduce
opportunities in graduate research and education and to help develop the careers of future leaders
in both academia and industry. The symposium will also offer an occasion for students and
supervising faculty to witness how student projects enhance faculty research and also serve the
greater community. Additionally, it will provide motivation for future generations of
undergraduate students. Those who are not engaged in these pursuits as yet can learn how their
fellow students developed their research interests.
"When does a scientist become a scientist? It is not when a person knows many facts and
even understands in depth some aspect of the natural world. I would suggest the transition
occurs when curiosity about a phenomenon leads to an inquiry for new knowledge. This can
occur in a person with little or lots of knowledge about a subject. It is an attitude of inquiry".